U.S.-Japan Cooperative Science: Elastic and Rheological Properties of High-Pressure Phases of Mantle Minerals

9513102 Liebermann This award supports a three-year cooperative research project between Professor Robert C. Liebermann of the State University of New York at Stony Brook and Professor Tetsuo Irifune of Ehime University. The collaborators assembled also include faculty and postdoctoral staff of the Mineral Physics Institute at Stony Brook and Hokkaido University. This proposal will address some of the most important areas of research on the elastic and rheological properties of the high-pressure phases of mantle minerals. The objective of this research is an improved understanding of the dynamical processes in the Earth's interior. This proposal brings together research scientists from two countries working in complimentary ways on mineral physics and chemistry. The U. S. scientists will have the opportunity to become familiar with the high-pressure facilities at Ehime University and the electron microscope facilities of Hokkaido University. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through international collaboration. ***